Participation in DELOS Digital Libraries Workshop in San Cassiano, Italy

This recommendation memo provides support and justification for funding the Principal Investigator to participate in a DELOS Digital Libraries Workshop to be held in San Cassiano, Italy in June, 2001. This meeting, entitled "Digital Libraries: Future Research Directions for a European Research Programme," is expected to be a seminal event for producing the core intellectual agenda and operational framework for the next phase of European activities in digital libraries research and applications. The US and EU agendas are naturally linked by common goals to achieve interoperability at the networking, systems, content, usage and other stages in the information lifecycle. A long-term overall goal is the development of shared resources for a global information cyber-infrastructure. The meeting is being organized by the DELOS Network of Excellence on Digital Libraries, in cooperation with the Cultural Heritage Applications Unit of the 5th FP IST Programme of the European Commission.